Strategies for Using Advanced Computer Architectures in Chemical Process Engineering

9322682 Stadtherr Advanced computer architectures, in particular those involving some form of parallel and/or vector processing, provide the power to greatly enhance the ability of the engineer to realistically model, simulate, design, and optimize complex chemical manufacturing processes, steady- and unsteady-state. The goal of this project is to develop techniques for solving such problems, taking full advantage of this enhanced processing. One focus of this work is the development of techniques for efficiently solving these systems on vector/parallel computers. The techniques to be considered are based on the frontal and multifrontal direct methods, and on iterative Krylov subspace methods with incomplete factorization preconditioners. A second focus for this project is the use of parallelism to maintain robustness in process simulation and optimization computations. Techniques based on interval analysis will be applied. Since interval methods are amenable to parallel computing, their use on these problems is now feasible. The application of advanced computer architectures in chemical process engineering is one of great potential. The rapid turnaround that can be provided by vector/parallel machines improves engineering productivity, meaning more critical deadlines met, faster times to market, and more timely responses to changes in business, economic, and regulatory conditions. The ability to use more complex and realistic process models means a better understanding of process fundamentals, thus reducing the need for overdesign, and providing the insights needed to better attain environmental and quality control goals.